Effect of Finite Width of Light Beam on Bistable Reflectivity in Nonlinear Waveguide Geometry

The research effort is related to the switching of optical beams (or the redirection of optical beams among various paths). Two significant problems relevant to this are: the minimization of energy or power required to carry this out and the speed at which this can be done. Both of these aspects are addressed in this effort.